Geometric rigidity for maps, foliations, and boundary structures of nonpositively curved spaces

DMS 0306594- PI: Christopher Connell
ABSTRACT

GEOMETRIC RIGIDITY FOR MAPS, FOLIATIONS, AND BOUNDARY STRUCTURES OF
NONPOSITIVELY CURVED SPACES

The PI plans to establish rigidity results for manifolds, foliations, and
quasiconformal structures associated with nonpositively curved spaces.
There are two main components of this project. The first is to broaden
the scope of Mostow rigidity by giving new characterizations of locally
symmetric spaces of noncompact type. Our proposed methods focus on
expanding the sharp relationship between volume, entropy and the degree
of maps initiated in its current form by work of Besson, Courtois and
Gallot. We then wish to extend weaker forms of this relationship to spaces
admitting nontrivial maps into nonpositively curved targets. The second
component involves understanding the connection between quasiconformal
structures and special geometric measures which live on the boundary of
most Hadamard spaces. The initial steps toward this goal also play an
important role in the first component. In the effort to establish these
results, we aim to significantly enhance our understanding of the
interaction between the geometry, topology and geodesic dynamics of such
spaces.

Based on a long standing principle, researchers have come to expect that
the most efficient solutions to analytic problems are often achieved by
those objects which have the most symmetry. For instance, the modern
version of a conjecture by Pappus of Alexandria asserts that the circle is
"rigid:" any other curve enclosing a region of the plane with the same area
must have longer length than the circle. This was finally proved in 1841.
In higher dimensions, the analogous result turns out to be true for the
spheres of constant positive curvature. We can ask related questions about
nonpositively curved spaces; these have the property that the sum of the
angles of any small triangle does not exceed 180 degrees. We propose to
show that most nonpositively curved spaces with a sufficient amount of
symmetry exhibit similar rigid behavior, but of a more intrinsic nature.
Moreover, we expect many nonpositively curved spaces which are not
symmetric to also exhibit a sort of weak rigidity. From such results, we
can partly determine the rough shape of many asymmetrical spaces,
regardless of curvature, and even draw some purely algebraic conclusions
related to their underlying structure. This naturally leads to dynamical
information arising, for instance, from the physical interpretation of
these objects as phase spaces.